Problems in geometric analysis

Proposal 0306752
PIs: Carolyn Gordon, Scott Pauls, David Webb

Title: PROBLEMS IN GEOMETRIC ANALYISIS

The focus of the project will be inverse spectral geometry and
analysis of Riemannian and sub-Riemannian geometries on nilmanifolds.
Inverse spectral geometry is the study of the extent to which the
geometry of a Riemannian manifold can be recovered from spectral data.
Gordon and Webb will consider constructions of compact Riemannian
manifolds with the same Laplace eigenvalue spectrum and compare their
local and global geometry. They, along with their collaborators, will
also consider the spectrum of Schroedinger operators on line bundles
over tori and spectral data for orbifolds. For noncompact manifolds,
the relevant spectral data are the scattering resonances and
scattering phase. Gordon, Webb, and Pauls, along with Peter Perry,
will investigate possible constructions of Riemannian metrics with the
same scattering data. They will also consider isoscattering
potentials for the Schroedinger operator and isoscattering obstacles.
In the area of sub-Riemannian geometry, Pauls will continue working
towards a better understanding of variational problems in Carnot
groups, focusing on the regularity of minimal surfaces, the
calculations of the best isoperimetric constant for the Heisenberg
group, extensions of previous work to more general Carnot groups and
on problems related to the spectral theory of the subLaplacian (joint
with Doyle, Gordon and Webb). He will also continue working with Mike
Wolf (Rice University) on two fundamental problems in the theory of
harmonic maps.

The investigators will address inverse spectral problems, inverse
scattering problems, and sub-Riemannian geometry. Inverse spectral
geometry is rooted in spectroscopy, the problem of understanding the
nature of a system from the characteristic frequencies of light or
sound emitted. The investigators will consider various constructions
of objects (Riemannian manifolds such as planar domains, balls, or
spheres) which have the same spectra and will compare their geometry
in order to identify specific geometric properties that are not
spectrally determined. In the quantum mechanical description of a
particle in a potential, one distinguishes between ordinary bound
states and scattering states whose wave functions are nonnormalizable
and whose energies can assume a continuum of possible values. Inverse
scattering theory seeks to understand as much as possible about the
nature of a potential from the scattering behavior exhibited by
particles interacting with the potential. The investigators will
address this problem by constructing and studying potentials with the
same scattering resonances. The investigations in sub-Riemannian
geometry are motivated by a wealth of physical phenomena including
problems in wheeled robotic control, satellite navigation and
stabilization and thermodynamics. At this point in time, relatively
little is known about the general theory guiding these types of
control phenomena. Because of this, the investigators will focus on
gaining a better understanding of the solutions to cost minimization
problems on basic model spaces. Specifically, the investigators are
focused on constructing area minimizing surfaces in these settings in
order to expose some of the fundamental geometric principles governing
the solutions to these types of problems.